Ship Operations for Research Vessel SALLY RIDE

Scripps Institution of Oceanography (SIO) operates the research vessel Sally Ride, a highly capable, well-equipped general-purpose Ocean Class research vessel. The vessel has been operated by SIO since delivery and is has been part of the US Academic Research Fleet since 2016. SIO employs a disciplined approach to vessel maintenance, regulatory compliance, foreign clearance, crewing and logistics so that scientific missions can be completed successfully and on schedule. The observation, measurement, and collection of samples and data are accomplished on an ocean-basin scale by scientific missions aboard Sally Ride. SIO's ship operations department supports NSF core values of scientific excellence, organizational excellence, learning, inclusiveness and accountability. The vessel management and operations proposed here enable transformative scientific research in physical and biological processes in the natural environment upon which human well-being depends.

These seagoing research and educational facilities enable scientists and students to study natural phenomena and train future scientists while on board state-of-the-art oceanographic research vessels utilizing high-quality instrumentation. The ship operators will also conduct learning activities for students and the general public including hands-on demonstrations of marine science research guided by faculty, students, and ship crew members. As a broadly subscribed shared-use facility, Sally Ride similarly contributes to the education, training and outreach missions of scientists from institutions across America who conduct their research and educational programs on board. Sally Ride will continue to serve NSF by safely, capably and efficiently facilitating multi-disciplinary scientific research to advance our understanding of our oceans and Earth.